Three Problems in Concurrent Systems

This project will address three specific topics in the efficient implementation of concurrent/distributed systems: - efficient multitasking for embedded on generalized stack architectures: - using the notion of the global state of a distributed program as a natural and efficient paradigm for distributed programming; and - protocols for "eager" service in distributed systems.